Understanding Self-Assembly and Properties of Ionic Composites Based on a Charged Double Helical Polymer

NON-TECHNICAL SUMMARY:
The PI is building fundamental knowledge of ionic composite materials that are finding uses in microelectronics technology and advanced manufacturing. These materials are composed of rigid and charged long chain molecules combined with mobile ions, and this makes them electrolytes that can conduct ions like lithium. These electrolytes are unusual in that they are solid and yet conductive, and they can form new device components that can store more charge and are immune to overheating and fire. There are many questions about the origins of the unusually strong conductive, chemical, and mechanical behaviors of these materials. This project is building an understanding of these behaviors that will help to design new variants of these materials. This informed design process in turn is greatly speeding up the discovery of new types of polymer-ionic materials. This project will also provide critical training opportunities on polymer science concepts and experimental techniques for graduate and undergraduate students. Outreach activities at Virginia Tech will include hands-on K-12 activities developed and delivered by PI Madsen and by undergraduate and graduate students in his research group. These activities will focus on polymer science and advanced energy storage technologies, which will help encourage children to broaden their perspectives and inspire them toward science and technology careers.

TECHNICAL SUMMARY:
This project involves fundamental studies of molecular ionic composite (MIC) materials. MICs represent a new class of ionic materials based on a double helical, rigid-rod, and highly charged polymer known as PBDT. MICs show promise in applications ranging from alkali-metal battery electrolytes to gas separations. The MIC “material platform” enables transformation of essentially any ion-dense liquid into a rigid solid. This project focuses on uncovering new aspects of the PBDT double helix structure, both to determine the phenomena involved in MIC network structures and to reveal fundamental links between MIC fabrication methods and final properties. This project will involve systematically generating MIC materials with controlled composition and processing, deeply characterizing MICs with NMR, molecular dynamics simulations, X-ray scattering, microscopy, and electrochemistry, and dovetailing these experimental studies with theories of liquid crystalline order, ionic transport, and intermolecular associations. The overarching goal is to develop new understanding of MICs so as to predict and control final MIC properties, build new classes of MICs, and provide principles for synthesizing new double helical polymers. Personnel on this project will interact with ~ 400 K-12 kids each year via outreach programs, which will involve tailored hands-on activities to the audience age and scientific literacy level. Graduate and undergraduate students at Virginia Tech will learn advanced polymer science concepts, powerful characterization and simulation techniques, and wide-ranging communication skills, preparing them for polymer-oriented careers in the US.